South Texas Engineering Scholarships at Texas A&M University-Kingsville (STES-TAMUK)

The faculty at Texas A&M University - Kingsville developed their CSEMS project to increase recruitment, retention and graduation of targeted CSEM majors. Then plan includes increasing the number of transfer students from community colleges in the CSEM disciplines and increasing retention of CSEMS students to 75%. Their CSEMS students attend orientation meetings with advisors and career service personnel. Their Career Services Office offers internships and permanent employment. They have created partnerships and formal articulations agreements with community colleges in South Texas to help graduates gain employment in the high tech workforce in the area. In addition their faculty is heavily involved with student mentoring, guidance, and tutoring support. They will also coordinate internships and research opportunities for their students.